Mathematics Across the Community College Curriculum - MAC3

The project's workshops make mathematical literacy a more welcome and indispensable part of the two-year college curriculum in the United States. A goal is to create a mathematically literate society ensuring a workforce equipped to compete in a technologically advanced global economy. In the workshops, math and non-math faculty across the disciplines create, evaluate and modify projects that incorporate mathematics across disciplines. As a result, community college students throughout the nation are offered opportunities to deepen and reinforce the mathematics they learn in their math classes as well as understand its greater importance and application in their lives. Half-day regional workshops, four-day summer or winter institutes and traveling workshops support faculty, nationwide, in integrating mathematics into their curricula. A website supports a network of two-year college faculty involved and interested in the project and publishes classroom tested material. The project heightens awareness among two-year college faculty of the important role two-year colleges play in creating a numerate society. The project also creates and disseminates exemplary projects and courses that integrate mathematics into all disciplines and offers a support system for community colleges integrating math across the disciplines.